REU Site: Research Training in Basic and Applied Psychological Science

This Site is supported by the Department of Defense in partnership with the NSF REU program. This program provides yearlong research experiences that teach undergraduate students how to design and execute independent research projects focused on behavioral and cognitive science.

Students supported by the site conduct independent research under the supervision of experienced research scientists with the goal of providing comprehensive, hands-on training in the scientific study of human judgment and decision-making. Research projects incorporate a range of methodological approaches to examine scientific questions about decision-making, neuroscience, and industrial/organizational psychology. Students will critically evaluate scientific literature, develop research questions and hypotheses grounded in theory and empirical findings, design and implement studies, and analyze and interpret data to inform evidence-based conclusions. This site is designed to cultivate future leaders in the U.S. scientific enterprise.